CAREER: Enabling Seamless Vision Sensing in Cloud-Edge Systems

Mobile devices such as smartphones have changed our daily lives. With the growth in the capabilities of smartphones as well as wearables such as "smart glasses", the next decade promises richer capabilities in terms of augmented reality, improved contextual sensing and more seamless computing that will integrate into our day-to-day lives. However, vision sensing applications, which are fueled by the improved understanding of user context, are highly resource and energy intensive, reducing useful operation time.

This project will enable the design of such applications by providing a programming framework that allows future applications to leverage cloud computation seamlessly, to provide the user with a good quality of service for the intended application while removing from programmers the burden of reasoning about where the computation should happen. The project includes plans for integration of research in education, broadening participation, and educational outreach.